PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research and training plan for this fellowship to Wushi Goldring is "Exploring the Limits of Algebraicity across Limits of Discrete Series, Galois Representations, and Variations of Hodge Structures." In the first year, the host institution for the fellowship is Princeton University, and the sponsoring scientist is Dr. Christopher Skinner. In the second year, the host institution for the fellowship is Université de Paris 13, Villetaneuse, France, and the sponsoring scientist is Dr. Jacques Tilouine. This award is co-funded by the International Research Fellowship Program of the Office of International Science and Engineering. This award is co-funded by the International Research Fellowship Program of the Office of International Science and Engineering.